A Laboratory Study of the Melt and Evaporation of Ice Precipitation

The transformation and distribution of water substance in natural clouds play a crucial role in both the atmosphere's heat budget and its capacity for motion. The transformations between vapor liquid and ice account for about 20% of the heat budget in the mid-troposphere (15,000 - 20,000 feet), while the distribution of water and ice essentially defines a crucial ingredient of the radiation field. Further, melting and evaporation of cloud particles can produce hazardous downward motions such as downbursts. The objective of this work is the experimental examination of melting and evaporation of ice particles under various atmospheric conditions as simulated in a dynamical diffusion chamber; particle breakup, scavenging and electrification will be examined. The results will be compared with cognate measurements obtained in recent field experiments. Dr. John Hallett is well qualified to pursue this work; he is readily acknowledged by his peers to be one of the best cloud physicists.